Support for Young Academic Investigators to Participate in 3rd International Meeting on Chemical Sensors, September 24-26, 1990, Cleveland, Ohio

This award provides travel funds for young investigators, mainly graduate students, to attend the Third International Meeting on Chemical Sensors, to be held in Cleveland, Ohio, September 24-26, 1990. Support will be provided for nine graduate students and five young faculty members who are beginning their academic research careers and have no other means of travel support. This grant will enable participation by these people themselves. The conference is in an area of emerging technology that will be critical to the economic competitiveness of the nation.